Diagnosing the Spatial Cascade of Precipitation, Soil Moisture, and Vegetation in Observations and Models

Drought is a leading cause of crop losses and wildfire risk. Societal impacts of drought depend not only on its severity, but also on how far dry conditions extend across the landscape, from local watersheds to entire regions. Long-term global satellite records now make it possible to measure how drought-related conditions are organized across landscapes. This project will use these records to create a global benchmark of the spatial organization of rainfall, soil moisture, and vegetation conditions, providing openly available tools for evaluating environmental models and informing drought resilience planning. The project will also train a postdoctoral researcher and undergraduate students in Earth system science.

Rainfall replenishes soil moisture, which regulates vegetation growth and water use, creating a cascade that links the atmosphere, land surface, and ecosystems. Most studies have examined this cascade through time, but much less is known about how it is organized across space. Using satellite observations, this project will map the characteristic spatial scales of precipitation, soil moisture, and vegetation anomalies across the globe, determine whether they form a consistent spatial cascade, diagnose the environmental drivers of these patterns, and evaluate how well a global reanalysis reproduces key features.